Adaptive Simulation, Analysis and Modeling of Incompressible Near-Wall Turbulent Flows Using Divergence-Free Wavelets

CTS-0106064
John Lumley, Cornell University

The PI proposes to adapt the divergence-free wavelet-based dynamical model for the simulation of a turbulent channel flow. The main goals are (1) to investigate how effective wavelets are in describing the coherent structure in the near wall region of turbulent channel flow, (2) to use wavelet bases to construct a low-dimensional dynamical-system representation for the near-wall region, and (3) to compare the wavelet and POD-Fourier representations of the coherent structure.